Artificial Neural System for Real-Time Flow Cytometry Analysis in Ocean Research

This proposal deals with the relatively new field of flow cytometry, in which lasers are used to excite unique but complex signal patterns of individual cells and particles in order to quantify and characterize the identification of cellular organisms. This technique obviates the need for time consuming, laborious identification by microscope. Flow cytometers have been introduced to the biological oceanography field to help identify the presence and extent of phytoplankton species. Oceanic phytoplankton may well be the most important element in the global food chain. It is also one of the major photosynthetic producers of CO2, the critical component affecting the global carbon cycle. It also is a prime contributor to the build up of CO2 in the atmosphere. Thus the measurement and quantification of phytoplankton is critical to our understanding of life on earth. Although flow cytometry has moved the scientist from the microscope to the world of rapid quantification, the data produced by flow cytometers is copious and must normally be processed ashore. This proposal is to apply artificial neural systems to flow cytometry to provide real time, at sea, data analysis, hardware and software to significantly ease the burden of analysis of the data and accelerate research into the life processes in the oceans. ANS systems are capable of rapidly recognizing patterns such as those produced by flow cytometry. KTAADN intends to use the services of James Bay Inc. a firm specializing in ANS to help define the necessary software. In particular they propose to use, NetMaster, an ANS system, developed by James Bay as a basis for the system architecture.